Collaborative Research: Conference: AitF PI Meeting

As computer technology becomes increasingly pervasive in all aspects of our lives, it becomes critical for the researchers who develop algorithms to work closely with the domain experts who have a deep understanding of the underlying systems. The purpose of the NSF Algorithms in the Field (AitF) program is to fund collaborations between theoretical computer scientists with other computing researchers. Via this meeting, the program is providing an opportunity for its principal investigators to share and discuss their latest advances, demonstrate technical accomplishments, and inform NSF on promising future research directions. The technical program agenda will highlight the contributions of the participating NSF divisions and address the research themes of the AitF program. Student researchers will also attend and present their work. This provides a valuable training opportunity and will contribute to the foundation for an enduring AitF research community.